A Symposium on Seeing; Waikoloa - Hawaii, Hawaii; Winter 2007

This award is for a conference on improving our understanding of the impact of atmospheric optical turbulence on Earth-based astronomy. There have been increased efforts in recent years to observe and quantify the effects of atmospheric turbulence and refractivity gradients on telescope image stability at various wavelengths. At the same time, there has been recent progress in modeling these atmospheric effects to support advances in methods that mitigate resulting telescope image degradation. There is significant opportunity for further progress, which would be facilitated by a symposium on seeing. The symposium would bring together experts in the various facets of the complex challenge posed by atmospheric optical turbulence.